SBIR Phase I: Commercial Combustion Synthesis of Homogeneous Lots of Carbon Nanotubes

This Small Business Innovation Research (SBIR) Phase I project intends to demonstrate the technical and commercial feasibility of cost- and energy-efficient conversion of carbon-containing feedstocks to well- defined carbon nanotubes. The proposed work will include a) the proof of concept of high-yield synthesis of carbon nanotubes in premixed flames with catalyst precursors added to the initial feed gas and b) the establishment of correlations between yields and characteristics of carbon nanotubes and experimental. Results will provide qualitative insight in the formation mechanism(s) whereas kinetic modeling will assist in the identification of optimized operating conditions.

The unique electrical, mechanical and chemical properties of carbon nanotubes allow for a large range of applications. Some of them, such as their use as field emitters in flat panel displays, are approaching market maturity while an inexpensive supply of well-defined carbon nanotubes is currently missing. Results of the proposed work are expected to have a significant impact on the achievement of the technological and commercial potential of carbon nanotubes.